International Conference on the Mechanics, Physics and Structure of Materials; Thessaloniki, Greece; August 1990

This award is for partial support of United States scientists participation in the International Conference on Mechanics, Physics, and Structure of Materials to be held at Aristotle's University of Thessaloniki, Thessaloniki, Greece in August 1990. The main objective of this interdisciplinary meeting is to bring together specialists from various fields such as engineering, physics, materials science, and mathematics and contrast their views on mechanical behavior with emphasis on plastic flow and fracture. Emphasis will be put on nonlinearity and pattern forming instabilities, as well as their implications into the understanding of the mechanical behavior of novel high-technological materials. The relevance of the notions of bifurcation, self organization, fractals, and chaos will critically be examined for the case of solids and the their microstructures. In this connection, the outstanding problem of the transition from microscales to macroscales will again be addressed.